Computational Laboratory to Enhance Undergraduate Mathematics

Students are using a new computational mathematics laboratory to gain a better understanding of mathematics and its applications. Macintosh computers are running Mathematica, a package that combines symbolic algebra routines and graphics capabilities, to allow students to do numerical calculations, symbolic algebra, and two- and three- dimensional graphics. The projects began with third semester calculus and is being integrated into the entire sequence. The university will match the award with an equal amount of funds.